Inverse Homogenization for Microstructured Media

Abstract: DMS-0508901, Elena Cherkaev, University of Utah

Title: Inverse Homogenization for Microstructured Media

The project develops a method of extracting information about the fine
scale geometric structure of micro- or nano-structured material from
effective acoustic or electromagnetic measurements. The technical
difficulty of using sound or electromagnetic waves in sensing micro- or
nano-structured media is the complexity and fine scale of
the microgeometry. The length of the
applied sound waves is much larger than the variations of the
microstructure, so that only an effective or homogenized response of the
structure is present in measured data. The proposed "inverse
homogenization" method derives microstructural parameters from effective
measurements. The method is based on the Stieltjes analytic representation
of the effective properties of a randomly microstructured medium, and a
possibility to reconstruct the spectral function in this representation
from the effective response of the homogenized material. The approach ties
together properties of the medium
on different scales: Complex permittivity on the coarse scale provides data
for microscale inversion. Computationally, the problem is ill-posed and
requires regularization to develop stable numerical algorithms. The recovered
microstructural information can be used for characterizing other
transport and physical properties of the medium, such as permeability,
diffusion, thermal and hydraulic conductivity, etc.

The project develops a novel approach to reconstruction of micro- and
nano-structural information from measurements of effective properties of
composite materials. It brings together results recently obtained in two
different fields: homogenization, and inverse and imaging theory, which
makes possible to formulate new applications for both research areas. The
problem is to find a composite material's structure from its known
response to the applied acoustic or electromagnetic field. When the
wavelength of the applied field is much larger than the microstructural
scale, then fine scale features of the structure cannot be resolved, and
the microgeometry is homogenized. The project develops an "inverse
homogenization" method that utilizes acoustic or electromagnetic
measurements over a range of frequency to recover information about
the microstructural parameters of the medium.

The results of the proposed work are useful in designing artificial micro-
and nano-structured composites. They also have applications to osteoporosis
through ultrasound evaluation of bone structure and density and to
noninvasive monitoring of blood clots and evaluation of their age and
structure.